AI Institute for Collaborative Assistance and Responsive Interaction for Networked Groups (AI-CARING)

People collaborate with one another in work, home, and social settings, and these interactions change over time based on the capabilities, roles, responsibilities, norms, and interpersonal relationships of those in the group. Human-AI Interaction (HAI) systems can provide assistance in managing group collaborations by providing timely information about the status, context, and needs of group members, and by interacting on their behalf with other such AI systems. The area of home care for aging adults is a prime example of a complex assistive setting inspiring this research. Older adults, family caregivers, medical professionals, friends and neighbors often collaborate to respond to changing needs. To assist in such settings, HAI systems need to: (a) model the physical, mental, and social capabilities and needs of people by integrating data across many sensory modalities; (b) detect physical, cognitive, social and psychological changes in user capabilities and needs; (c) understand the dynamic relationships and capabilities across the support network; and (d) adapt interactive behaviors in order to assist the user most effectively. This project will develop approaches in human-AI interaction that learn personalized models of human behavior and how they change over time, and use that knowledge to better collaborate, communicate, and assist the user. To drive these innovations, the Institute will serve as a nexus point for collaborative efforts across academia and industry. In addition to advancing research, these collaborations will actively build the next generation of talent through a wide range of education, outreach, and knowledge transfer programs designed to disseminate knowledge about, and enthusiasm for, the development of interactive AI systems.

The AI Institute for Collaborative Assistance and Responsive Interaction for Networked Groups (AI-CARING) will develop a discipline focused on personalized, longitudinal, collaborative AI -- characterized by the design, development, and deployment of interactive, intelligent HAI systems embedded within communities of users over extended periods of time (months and years). Envisioned HAI systems will take the form of virtual assistants embedded in common consumer devices (e.g., cell phones, smart speakers) that will interact with users via speech, gesture, visual, auditory, and mixed reality interfaces. HAI systems will establish personalized longitudinal models of user abilities, goals, values, and interpersonal relationships based on aggregated sensor observations and the history of past interactions. Building on such models, networked teams of agents will provide coordinated assistance through personalized interactions. Researchers in computing, social sciences, and healthcare will collaborate to design, develop, and deploy HAI systems that include sample-efficient techniques for user modeling and personalization, robust methods for longitudinal human-AI teaming, explainable systems, novel guidelines for experimental design, and novel benchmarks and metrics for these areas. Research demonstrations and long-term field evaluations will involve households (instrumented with different types of sensors) that include older adults with cognitive and physical impairments, their family, informal caregivers, professional health providers and community partners. AI-CARING systems will reinforce daily routines, recognize changes in behavior, provide team support for caregivers, scaffold planning for interactions with professionals, and provide feedback regarding an individual's varying abilities. These fundamental capabilities will scaffold responsive and personalized Human-AI Interaction that will transform our day-to-day experiences with AI systems. The long-term impact of this work will go beyond caregiving, extending to any application that includes long-term Human-AI Interaction through speech, gesture, visual and mixed reality interfaces.